Support of UNM/SNL Ion Microprobe Facility

9706054 Wiedenbeck This grant provides $160,000 as two years of facility support for the University of New Mexico/Sandia National Laboratory Ion Microprobe Facility. This grant is a renewal of current EAR/IF support (EAR-9506611) of this facility. The UNM/SNL facility provides access to a Cameca ims 4f secondary ion microprobe (SIMS) for 50% of the operational time of this instrument. The remaining instrument time is allocated to DOE/SNL researchers as DOE provides laboratory space and originally purchased the instrument. Specifically, funds will provide half-time salary support and associated fringe and indirect costs for a senior researcher and a research associate and laboratory consumables. This facility provides high spatial resolution trace element analyses of geologic and planetary materials for studies in igneous and planetary petrology and geochemistry. Development of analytical techniques for isotopic measurements are underway. ***